MSPA-MCS: Markov Random Fields: Structure and Algorithms

Markov random fields (MRFs) provide a very general framework for
capturing conditional independence in large collections of random
variables. The proposal is concerned with the spatial properties of
MRFs, and with two widely used algorithmic paradigms for solving
inference problems in them: Belief Propagation (BP) and Gibbs Sampling
(GS). Though widely used, these algorithms (especially BP) lack
rigorous performance guarantees in most situations. One major goal of
the proposed research is a deeper understanding of the behavior of BP
and GS for different classes of MRFs that arise in applications. A
central thesis is that the performance of these algorithms is
intimately tied to the spatial structure of the underlying MRF. By
making this connection precise the project aims at an improved
understanding of the algorithms and their relationship to one another.
Based on this insight, a second major goal of the project is to
investigate systematic methods for designing MRFs tailored to a
specific application; the MRFs should have suitable spatial properties
so that algorithms like BP or GS (or variants thereof) are both
successful in practice and provably effective.

Markov random fields are a rich class of mathematical models that are
extremely well suited to capturing the behavior of large systems of
independent components whose interactions are best described in
statistical terms (rather than in terms of deterministic laws). Such
systems are ubiquitous in today's world. As a first example, consider
the millions of computers on the internet: the communication time
between your computer and a given website is not a fixed quantity, but
varies depending on the number of other users, the time of day etc. A
second example is the problem of modeling and predicting global
climate, which depends on a very large number of factors that interact
in statistically variable ways. Modeling such applications with
Markov random fields leads to a number of computational problems
that---due to their extremely large size---are essentially impossible
to solve exactly. The primary goal of this research project is the
development and analysis of efficient algorithmic methods for
obtaining approximate solutions, with rigorous guarantees on accuracy
and running time. In light of the broad range of scientific and
engineering contexts in which Markov random fields are used, basic
research on these algorithms has the potential for very broad impact
in many domains, including modern-day computing and communications
infrastructure, intelligent systems for medical diagnosis, and the
modeling of complex physical and biological systems.